Metabolic Deficit and Recovery

Compromised brain function can occur in the absence of apparent structural damage. Certain types of brain scans which show only structural features may appear normal, yet other types of scans based on the metabolic activity of the neurons will show changes in discrete brain regions that are related to the functional disturbances. In this award to Drs. Ruthmary Deuel and Lyndon Hibbard, the metabolism of brain regions will be measured by the method of 2-deoxy-D-glucose, which is a metabolic marker. The syndrome of hemineglect will be produced by cortical damage and changes in metabolic activity in areas removed from the damage itself will be studied during the recovery process. The syndrome of hemineglect involves an abnormality of spatially directed attention and motor performance. The precise localization of neuronal metabolic changes associated with this syndrome will be studied by computer reconstruction of brain sections. This work will contribute to understanding brain function in normal individuals and during recovery from damage.